Acquisition of Equipment for Bioorganic Research and Training

This award provides funds that will aid in the acquisition of computer equipment and software by an outstanding group of biochemists and organic chemists at Brandeis University. The instrumentation will be used to aid in the research training of graduate students working in the emerging area of bioorganic chemistry. Increasingly, organic chemists and biochemists have come to realize that their disciplines have much to learn from and offer to each other. At Brandeis, such cross fertilization occurs in the context of research programs in areas as diverse as the study of enzyme mechanisms, synthesis of natural products and pharmaceuticals, molecular recognition, and the role of solvent molecules in chemical reactions. Work in these areas depends heavily of the use of computers for analysis and interpretation of experimental data, and, as well, the formulation of new lines of inquiry. The equipment acquired through this award will insure that the training of a new generation of investigators will proceed in an environment with adequate state of the art computational facilities.